Research Planning Grant: Global Partners? Environmental Organizations in India and the U.S

9312139 Weeks This research planning grant will allow the investigator to refine the theory and methods with which to examine the effect political and economic inequalities in the world system have on the construction of a shared understanding of environmental problems. The study itself will use ethnographic interviews, analysis of written materials, and basic organizational analysis to make two sets of comparisons: between World Wildlife Fund India and World Wildlife Fund U.S.; and World Wildlife Fund India and Bhopal Gas Affected Working Women's Union. The first pairing allows comparison of the nature of transnationally shared analytical and normative socio-scientific systems; the second, study of the nature of national affiliation on construction of environmentalism to determine whether there are analytic categories unique to Indian environmentalism. The goals of this fifteen month planning grant are: 1) develop the interview schedule; 2) refine the theoretical framework; 3) refine methods to analyze textual and interview materials; and 4) to write a full research proposal. Planning activities included in this request are: the collection of background materials on organizations to be studied; travel to India to work with the Indian collaborator to plan field work in India; identifying potential interviewees; consulation with a political scientist and a linguist to refine the theoretical framework and methodology. The reserach should provide new insights on the conditions under which a cross-culturally shared understanding of environmentalism arises, and alternately, the conditions under which it is thwarted. ***